Relevance and Risk: Pilot Studies of Risk Information, Risk Perception and Intended Protective Behavior

Effective risk communication has been shown to depend on a number of factors, including the level of involvement of the audience, the relevance of the message for the audience and the ability of the audience to process the information. The objective of this project is to explore the determinants of risk relevance in a series of pilot studies. It begins with the assumption that judgments of relevance are based on the similarity between the object of the relevance judgment (an individual or community, etc.) and the object of the risk information. For any individual, information about oneself is most relevant. Relative to expert judgments, public judgments of relevance can be valid or biased, i.e. based on features of similarity that are not related to the level of risk faced by the individual. To test this theory of the determinants of relevance, the features of similarity will be manipulated in a laboratory setting. This should reveal what features of similarity have the most effect on relevance and risk. Further, an information acquisition task will permit the study of how relevance judgments are made as well as the relations between relevance and denial. Focus-group discussions will help in understanding how relevance is dealt with spontaneously in interpersonal settings. Self descriptions will provide information about the features individuals use to characterize themselves in varying contexts. Finally, the judgments of expert risk analysts will used as the basis for assessing the validity of lay judgments of relevance. All these pilot studies will be used to develop a theory of relevance in risk communication and to refine methods for its study. Not only does this research promise to advance thinking about risk information and response to it, but it is also likely to have broader application to other areas of information processing and reception.